Arabidopsis 2010: High-resolution Mapping of Regulatory DNA

The genome of an organism encodes not only genes and their RNA and protein products, but also the integrated programs that define when, where, and to what extent different genes are activated or silenced. At the DNA level, gene regulatory signals are encoded by regulatory elements that comprise clustered recognition sites for DNA binding proteins. However, the location and function of the vast majority of Arabidopsis regulatory sequences is currently obscure. In this project, novel high-throughput epigenomic technologies--Digital DNaseI Mapping and Digital Genomic Footprinting--will be applied to map and characterize regulatory DNA across the A. thaliana genome at nucleotide resolution. These technologies are capable of mapping the locations of regulatory DNA sequences, and delineating the specific sites of regulatory factor binding within such regions. Because gene regulatory programs vary widely both between different cell types and within a cell type during differentiation, the project will encompass multiple developmental stages and tissues of a reference strain. As sessile organisms, plants integrate many cues into appropriate developmental and stress responses, most of which rely on major re-programming gene regulatory responses. Regulatory DNA involved in such responses will therefore be mapped through study of standard stress conditions. At the population level, most phenotypic variation is likely to derive from non-coding genetic variation. By systematically extending maps of regulatory DNA across both diverse A. thaliana accessions and related species, the project will expose relationships between genotypic variation and gene regulatory programs on a genome-wide scale. The resulting data will provide unprecedented insight into endogenous and environmentally-responsive plant regulatory programs, and will significantly accelerate the identification of functional non-coding variation underlying relevant phenotypic variation.

Broader impacts. This project has the potential to change fundamentally the landscape of gene regulation research in A. thaliana and in plants generally, both as it applies to basic mechanisms and in its application to solve diverse quantitatively varying phenotypes. The availability of comprehensive, high-resolution regulatory DNA maps for A. thaliana stages, tissues, treatments, accessions, and evolutionarily related species will immediately bring A. thaliana to the forefront of regulatory genomics, and will provide a powerful attraction for bringing dynamic new investigators to the field. The comprehensive annotation of A. thaliana regulatory regions and transcription factor binding sites targeted under this project will be of use to the entire plant biology community, and will develop significant data resources that will potentiate experimental approaches to determining gene function. The project will foster the advancement of plant regulatory genomics through rapid dissemination of data to the public domain via genomic databases as well as relevant analytical tools to assist in its utilization by diverse investigators. The project will also encompass a significant educational component aimed at training next-generation leaders in plant regulatory genomics, and recruitment and training of talented undergraduate and graduate scientists from diverse backgrounds.